Students Scientist Partnerships for Authentic Science Research ... A Planning Grant

9633748 Barstow This project is for an Invitational Planning Conference on "Student and Scientist Partnerships for Authentic Science Research", to be held in Washington, D.C. in September, 1996. Included in the project is preparation and distribution of a report based on the conference proceedings, papers and recommendations. The goal of the Conference is to explore the emerging collaborations between scientists and students to do authentic science and powerful education in the K-12 classrooms. The role of Conference attendees is to examine the current state of the art, draw lessons from existing student and scientists partnerships, suggest solutions to barriers that hinder wider use of such partnerships, and develop ways to interest more scientists and educators in this field. The goal in this conference is to take full advantage of this pivotal opportunity to explore the potential of this field and to collaboratively develop long-term action plans to tap into the scientific and educational power of student/scientist partnerships for authentic science research.